Molecular Biology Laboratory Instrumentation

This award provides funds to equip an undergraduate Molecular Biology laboratory at the University of Southern California with those instruments necessary to offer an introductory course to students planning careers in biological research or medicine. The Department of Biological Sciences awards bachelor degrees with a variety of major options to 120 students per year. Many of these students would be better prepared for their career goals if they are introduced to research techniques in molecular biology. A limited number now satisfy this need by taking directed research in faculty laboratories. This course would allow them to acquire the basic skills in an instructional laboratory while still leaving them the option of individual faculty directed research. The Molecular Biology laboratory course will admit selected honors level juniors and seniors who have completed courses in introductory molecular biology and introductory biochemistry with laboratory. The course will provide students with experience in mutation analysis, plasmid utilization and analysis, RFLP analysis by Southern blot, polymerase chain reaction applications, DNA synthesis and sequencing, gene cloning and analysis, bacterial genetics, and phage genetics. A recently remodeled laboratory in the microbiology instructional area with adjacent preparative facilities is dedicated to the sole use of this course in the fall semester and continuation projects in the spring semester. The NSF funds and university matching funds will together provide for 10 completely equipped paired student work stations plus the larger community use equipment which is required. Individual experiments will be directed by the departmental faculty member most experienced in the specific techniques required. A member of the instructional laboratory faculty will have the course as a full-time responsibility and experienced teaching assistants will be present at all time.